NSF/OECD Joint Pilot Project to Develop a Survey of Careers of Doctorate Holders (CDH)

This collaborative research project will explore the feasibility of developing a country's capability to survey recipients of highly advanced degrees by engaging in an internationally comparable survey instrument, undertaking pilot tests of this instrument and an evaluation of the pilot tests.